Collaborative Research: Seismological and Geodynamic Investigations of Mantle Anisotropy

This project will evaluate the robustness, resolution, and required
complexity of global seismologic and geodynamic models of upper
mantle azimuthal anisotropy in order to improve our understanding of
mantle dynamics. Recent years have seen a refinement of
seismological models of anisotropy, presumably indicative of shearing
in mantle flow. Particularly surface wave inversions have been linked
to models of mantle circulation with some success. Such findings make
it appear feasible to test hypotheses for regional tectonic models
using sophisticated synthetic data sets in the near future. However,
while several questions about the implications of anisotropy remain
unanswered, it is also true that comprehensive and quantitative
models with thorough estimates of uncertainties are still lacking.
This project addresses some of the relevant issues of seismological
analysis and improved geodynamic models, such as: How stable are
azimuthal anisotropy patterns with respect to data selection and
inversion methods? How well constrained is anisotropy under
continents and oceanic regions? What are the characteristic to
convection models, from Newtonian to power-law rheology, from
laterally constant to varying viscosity, and from finite strain to
texture modeling. A range of resolution and synthetic model tests
will be performed to evaluate the robustness of the seismological
models. Such a combined seismologic and geodynamic research program
will lead to new insights into upper mantle structure, anisotropy
formation, and mantle convection. The aim is to formalize our
understanding of lithospheric and upper mantle deformation based on
mantle flow, in order to develop models with specific regional
predictions that are useful for the design of field campaigns and
geologic hypothesis testing.